Applications of String Matching to Molecular Biology

String Matching algorithms play an essential role in the solution of many problems of molecular biology. This project will be concerned with slgorithms for the DNA superstring problem and algorithms for dictionary matching. It will also be concerned with compression metrics as a measure of entropy for detecting boundaries within a DNA seguence and for measuring the relatedness of two DNA sequences, and with the notion of periodicity in computer vision.